Aerosol Characterization Experiment (ACE)-Asia Surface Network Implementation, Operations, and Coordination

This project supports the coordination of ground-based measurements during ACE-Asia (Aerosol Characterization Experiment). In particular, the PI will: (1) facilitate and coordinate the activities of the US investigators at the ACE- Asia Supersite at Kosan, Korea; (2) to coordinate and standardize - to the extent possible - measurements of aerosol composition and mass at all network sites; (3) to assist in assuring data quality and developing a data archive for the network, and (4) to develop and implement plans for intercomparing samplers and analytical methods for the aerosol chemical characterizations. IMPROVE samplers will be mad available for comparisons against other types of samplers. The scientific objective of the ground station network is to characterize the spatial and temporal variability of key aerosol properties in near surface air over eastern Asia and the western Pacific. Asian scientists are responsible for site selection, site operations, and analyzing the samples collected.